NSF Young Investigator

The goal of this research is to make fundamental measurements of physical, chemical and photochemical heterogeneous processes that could affect the composition of our atmosphere. Spectroscopic techniques in well-defined vacuum environments to characterize the growth and reactivity of atmospheric aerosols. Experiments will be performed both on model thin-film samples and on actual particles we fabricate in the laboratory. Measurements of model particle composition, nucleation and growth rates, heterogeneous chemical and photochemical reaction rates, and condensed-phase optical properties will be carried out.